CISE Research Instrumentation: A Multidisciplinary Design Testbed for Research and Education

EIA-9986015
Spiros Mancoridis
Drexel University

CISE Research Instrumentation: A Multidisciplinary Design Testbed of Research and Education

The design problems of the next century will require mixing diverse disciplines and computational tools in order to deliver new information services and physical products. The Department of Mathematics and Computer Science at Drexel University will address these challenges by building a design testbed that connects facilities and researchers engaged in diverse but complementary research projects; most importantly: (1) collaborative engineering design (2) intelligent mobile robot design (3) software design recovery (4) design of symbolic and scientific Problem Solving Environments. This testbed for education and research on multi-disciplinary design problems will consist of a gigabit network backbone (1 gigabit switch, gigabit Ethernet cards), shared computing resources (1 Sun compute server, 1 Sun disk server, 1 Sag Electronics RAID, 5 SGI workstations, 2 Dell workstations) and mobile robot experimentation materials (8 Lego kits, 1 Nomad Super Scout II).